U.S.-France Cooperative Research: Investigation of Novel Methods of Quadrupole SPLITT Separation

0003787
Zborowski

This three-year award for U.S.-France cooperative research involves Maciej Zborowski at the Cleveland Clinic Foundation and Mauricio Hoyos of the Ecole Superieure de Physique et de Chimie Industrielle in Paris, France. The project addresses magnetic cell separation in general and magnetic cell sorting processes. The investigators have developed a research scale, open gradient, quadrupole magnetic flow sorter in order to study cell behavior in a magnetic field, in flowing aqueous media. They will further evaluate this system and its separation potential over current, batch-wise magnetic separator systems. The US investigator brings to this collaboration expertise in cell sorting and cell separation equipment. This is complemented by theoretical expertise in fluid dynamics and separation methods (split-flow thin channel separation or SPLITT) developed by the French group. The project will advance understanding of fluid dynamics that contribute to cell separation and sorting and applications in biotechnology and biomedical research.

This award represents the US side of a joint proposal to the NSF and the French National Center for Scientific Research (CNRS). NSF will cover travel funds and living expenses for the US investigator and graduate student. The CNRS will support the visits of French researchers to the United States.